Compactness of Critical Metrics and Some Fully Nonlinear Equations in Conformal Geometry

ABSTRACT DMS - 0202477.

Jeff A. Viaclovsky's project has three parts.
The first part is joint work with Gang Tian,
dealing with orbifold compactness of Bach flat
metrics in dimension 4. The second part is joint work
with Matt Gursky, and is about curvature functionals and
conformal deformation of curvatures in dimension 3.
The third part deals with existence of solutions
to some fully nonlinear equations in conformal geometry.
The first project is to understand compactness properties
of the moduli space of critical points of the L2 norm
of the Weyl tensor in 4 dimensions. The Euler-Lagrange
equations are known as the Bach equations, and there are
many known solutions, for example, metrics that are locally
conformally Einsten, and self-dual or anti-self-dual
metrics. Since it is known that these metrics exist in
abundance, it is an interesting problem to understand
the moduli space of solutions. The project of Viaclovsky
and Tian is to show that, with certain geometric
conditions, one may compactify this space by adding
metrics with orbifold singularities. The other parts
of the project deal with fully nonlinear equations in
conformal geometry. The goal is to conformally deform a
metric so that the kth elementary symmetric function of the
eigenvalues of the Schouten tensor is constant. This may
be viewed as a fully nonlinear generalization of the
well-known Yamabe problem. An application of this is to
improve the curvature by conformal deformation. For
example, given an initial metric, conditions are found so
that the metric can be conformally deformed to positive
sectional curvature.

The project with Tian generalizes some well-known
results for Einstein metrics. Einstein metrics are
particularly interesting from the connection with Eisteins's
theory of general relativity, and the Bach equations
are a natural higher order generalization
of the Einstein equation. The work in conformal
geometry is naturally conformally invariant
and also has applications in physics through
conformal field theory. Firthermore, new notions of mass
arise for these equations, and this is also
of interest in general relativity. These equations
also have applications to determining the topology
of 3-manifolds, given some geometric constraint
on the curvature.